Participation of U.S.Scientists in 16th International Congress on Genetics - August 20-27, 1988

The XVIth International Congress of Genetics will be held in Toronto, Canada, August 20-27, 1988. The theme of the Congress will be "Genetics and the Unity of Biology". The program will be organized into five divisions: I. Genes and chromosomes, II. Genomes and organisms, III. Populations and evolution, IV. Genetics and society, and V. Biotechnology. Each division will contain symposia, workshops and posters. Eleven plenary lectures will also be given. The Congress, the first in five years, will provide a unique setting for the synthesis of general concepts derived from many different organisms and systems. The workshops and posters should stimulate cross fertilization of ideas on approaches and techniques. U.S. participation will enhance American genetics by the exchange of information that will take place. Success of the Congress will depend significantly upon American participation because of the predominant position of American scientists in the field of Genetics. This award will provide partial support for the travel of U.S. Scientists to attend and participate in this important Congress.